Seismic Rehabilitation of Non-ductile Concrete Columns Using Advanced Composite Jacketing

9422245 Ricles In many regions of the United States there exists several reinforced concrete frame structures constructed in the 1950's and 1096's which were designed primarily for gravity load effects. The construction details used in these structures can cause non-ductile structural failure under seismic loading. As a result, the performance of these structures is considered suspect for moderate to severe seismic loadings. This study focuses on seismic retrofit of the columns of these frames, which are the major reason for their non-ductile behavior. These column have insufficient lap splices in the flexural hinge zone as well as a lack of transverse steel reinforcement along the length of the member, making them prone to lap-splice, shear, and axial-flexural compression failures. Advanced fiber-epoxy composite jackets will be used to enhance the strength and ductility of these columns: (l) in the laps- splice zone to create a confining pressure on the splice, (2) along the member to enhance the shear capacity through a truss mechanism, and (3) in plastic hinge zones to provide ductility by confining concrete in compression and increasing shear capacity. Experimental testing will be conducted to assess adtanced fiber- epoxy composite jacket retrofit designs considering the parameters of material type, fiber orientation, jacket stiffness, active vs. passive jacket pressure systems, and cyclic uniaxial lateral loading combined with axial load. The performance of the jacket retrofit will be compared with that of corresponding as-built non-ductile columns under cyclic loading. The research program will develop practical methods for successfully retrofitting columns using the fiber-epoxy wrap composite material, and will develop guidelines for retrofitting non-ductile columns that can be applied by practicing engineers. ***